Spreading and Migration of Weakly Adhering Cells on Biomembrane-Mimicking Cell Substrates

ID: MPS/DMR/BMAT(7623) 1006552 PI: Naumann, Christoph ORG: Indiana/Purdue-Indianapolis

Title: Spreading and Migration of Weakly Adhering Cells on Biomembrane-Mimicking Cell Substrates

INTELLECTUAL MERIT: The central paradigm of mammalian cell migration states that cell motility, which is an important aspect of cellular functionality, is the result of cytoskeleton-induced protrusion and contraction forces that are transduced to the cell environment through specific cell linkages, such as integrin-based focal adhesions. However, in contrast to most mammalian cells which are well characterized by this paradigm, the underlying migration processes of weakly adhering cells with less prominent cell substrate linkages, such as leukocytes and certain cancer cells, remain elusive. This type of migration is known as amoeboid migration and is characterized by relatively rapid cell body translocation, enhanced plasticity, and pronounced cellular shape fluctuations. The current proposal seeks to explore underlying processes of amoeboid migration by the use of a novel biomembrane-mimicking cell substrate that allows the systematic variation of viscous drag of cell linkers without permitting formation of tensile force-carrying focal adhesions. By varying the viscous drag of cell-substrate linkages, as well as by selective modification of protrusion and contraction forces using pharmacological agents, this experimental system will enable the PI to determine the interplay between adhesion, contraction, and protrusion forces during amoeboid migration. Tuning of the viscous drag of cell linkers will be accomplished using a stack of multiple polymer-tethered lipid bilayers of adjustable bilayer number on a solid support. Specifically, the PI proposes migration studies in the presence of two types of cell-substrate linkages: (1) cell-extracellular matrix (ECM) mimicking integrin-laminin linkages (Specific Aim 1) and cell-cell mimicking cadherin based linkages (Specific Aim 2). Cell morphologies, cell migration velocities, cellular shape fluctuations, and cytoskeletal organization will be monitored using complementary optical microscopy methods.

BROADER IMPACTS: The proposed biomembrane-mimicking cell substrates system represents a powerful tool to explore poorly understood properties of weakly adhering cells under well-controlled conditions. These substrates also have substantial translational potential in biomedical cell assays, including drug screening, as they may mimic native tissue environments more realistically than currently existing substrates. Biosensor applications are also envisioned because the enhanced distance between top bilayer and underlying solid in multi-bilayer stacks will likely improve the functional reconstitution of membrane proteins. `The interdisciplinary character of the project will provide excellent training for graduate and undergraduate students. The PI will remain committed to the training of a broad pool of students with diverse social, racial, and ethnic backgrounds. The PI will also expand previous outreach activities at the high-school level and through the IUPUI Nanoscale Imaging Center. In addition, research results from this project will be developed into undergraduate and graduate courses in physical chemistry and biomimetic chemistry. Research will also be disseminated via scientific meetings, peer-reviewed journals, as well as via the internet.